CO2 and Delta 13CO2 in Antarctic Ice Cores

9980691
Wahlen

This award is for support for three years of funding to reconstruct the atmospheric carbon dioxide (CO2) and carbon-13 isotope (d13C) concentration in ice cores from Antarctica over several climatic periods. Samples from the Holocene, the Last Glacial Maximum (LGM)-Holocene transition and glacial stadial/interstadial episodes will be examined. Samples from the Siple Dome ice core drilled in 1998/99 will be made, in addition to measurements from the Taylor Dome and Vostok ice cores. The major objectives are to investigate the phase relationships between variations in the concentration of atmospheric CO2, its carbon isotope composition, and temperature changes (indicated by 18dO and dD of the ice) during deglaciations as well as across rapid climate change events (e.g. Dansgaard-Oeschger events). This will help to determine systematic changes in the global carbon cycle during and between different climatic periods, and to ascertain if the widely spread northern hemisphere temperature stadial/interstadial events produced a global atmospheric carbon dioxide signal. Proven experimental techniques will be used.